Support for US High Energy Physicists to Attend XXXIInd Rencontres de Moriond Conferences Les Arcs, Savoie, France; March 16-29, 1997

The Moriond series of conferences cover the status of particle physics. The first focuses on the electroweak theory of particle physics and the second on Quantum Chromodynamics. The conferences are attended by scientists from all over the world and this grant will enable two students to participate.